Workshop on Internet Service Qualities, December 2-3, 1999, Cambridge, Massachusetts

This award funds a two day workshop on Internet Service Qualities to provide a unique opportunity for academics, researcher, business leaders and policymakers to present and discuss their research plans and results and gain a better understanding of the rapidly changing environment for Internet integrated services. The workshop's goals are to develop a framework for understanding the technology and economics of Internet integrated and differentiated services and to provide constructive feed back to industry and government of issues that are important for sustainable Internet growth. Expected topics include 1) the economics of Internet interconnect, multicasting and applications, 2) technical and experimental models for delivering multiple qualities of service, and 3) regulation and standards in the emerging networked environment.